U.S.-Germany Cooperative Research: High-Performance Execution of Nested Data Parallelism in Fortran Programs

This award supports Dr. Jan Prins, co-PI Siddhartha Chatterjee, and a graduate student from the University of North Carolina-Chapel Hill in a collaboration with Stefan Jªhnichen of the Department of Communications and Software Engineering at the Technical University of Berlin. The collaboration will study high-performance computing with the aim of integrating nested parallelism into the High Performance Fortran (HPF) and Fortran 95 programming languages. (HPF is a variant of Fortran 95 specifically targeted for programming high-performance parallel computers in a way that does not depend on the computer architecture.) The time is right to incorporate this new technology into Fortran so that applications can take advantage of the capability without disrupting ongoing development. Nested parallelism enables the expression of adaptive and sparse solution techniques necessary to performing increasingly large and precise scientific computations. The collaboration combines the complementary strengths and facilities of the two research groups.